ENAM?04 Fourth International Conference on Exotic Nuclei and Atomic Masses

ENAM04: Fourth International Conference on Exotic Nuclei
and Atomic Masses
ABSTRACT

ENAM is a triennial international conference series devoted to the
physics of nuclei far from stability and radioactive ion beams (RIB).
RIB science is extremely broad and diverse. It spans the gamut from
nuclear structure to astrophysics, tests of fundamental laws of nature,
and myriad applications. Nevertheless, it is characterized by several
encompassing themes that reflect the major challenges facing modern
science today, and it has deep links to many other fields.

The scientifing challenges discussed at ENAM will include the
following compelling questions:
* How are the heavy elements created and how do nuclear properties
influence the stars?
* What is the structure of atomic nuclei and how do complex systems derive
their properties from their individual constituents?
* How can complex many-body systems display such astonishing regularities
and which new symmetries characterize exotic nuclei?
* What are the fundamental symmetries of nature?

Worldwide, the study of exotic nuclei is in rapid advance. With the
large number of radioactive ion beam facilities that are operating,
under construction, and proposed, ENAM is a unique forum to discuss the
exciting developments in the field, including experimental discoveries,
theoretical modeling, technological advances, and applications. The
Fourth Conference will be at Callaway Gardens in Pine Mountain, Georgia
USA. The timing of the meeting is excellent. The recent Nuclear
Physics Long Range Plan has identified the Rare Isotope Accelerator as
the highest priority for new construction in nuclear physics for the
United States. For the RIA community in the USA, and for the RIB
community worldwide, ENAM is the single most important meeting.